Dynamics and Applications of String Theory

This award funds the research activities of Professor Mina Aganagic at the University of California, Berkeley.

String theory is the leading framework for reconciling quantum mechanics with gravity and the other fundamental forces of Nature. Because its characteristic energy scale lies beyond the reach of direct experiment, progress depends on extracting mathematically precise predictions that can be tested through rigorous calculation. Professor Aganagic will investigate a remarkable six-dimensional quantum theory predicted by string theory. Although this theory cannot be formulated by conventional methods, it governs broad families of lower-dimensional quantum theories and has led to deep advances in mathematics, including knot theory. The structures developed in this project will also inform Quantum Information Science. In particular, the six-dimensional theory gives rise to a generalization of Chern-Simons theory, which provides a mathematical foundation for topological quantum computation. The project will also provide a testing ground for emerging applications of Artificial Intelligence in physics and mathematics, including the computation and analysis of new link invariants. As such, this research advances the national interest by promoting progress in one of science’s most fundamental directions: the discovery and understanding of new physical laws. The project will also have significant broader impacts: Professor Aganagic will train undergraduate and graduate students and postdoctoral researchers, give public lectures, and organize the Informal String-Math Seminar, whose recorded lectures are freely available to the public.

More technically, Professor Aganagic will develop a description of the six-dimensional (2,0) superconformal field theory, which has no known Lagrangian formulation, in terms of its self-dual strings, building on her prior work on little string theory. She will test this description by deriving the Knizhnik-Zamolodchikov equation and analytically continued Chern-Simons link invariants from it. She will then use the framework to construct BPS states associated with links, recover from six dimensions her recent solution of the thirty-year-old link-categorification problem, and expose the theory’s underlying quantum-group symmetry. Finally, she will extend the construction to non-simply laced Lie algebras, Lie superalgebras, and Verma modules, opening a path toward the categorification of three-manifold invariants.